Mathematical Sciences: NSF Young Investigator

This research, supported by the National Science Foundation Young Investigator award, will continue Xia's work on dynamical systems and Hamiltonian mechanics. In particular, he will work on the singularities, Arnold diffusion and other chaotic solutions of the n-body problem. He will also work on the generic properties of general Hamiltonian systems. The National Science Foundation Young Investigator award recognizes outstanding young faculty. This award recognizes the recipient's strong potential for continued professional growth as a research mathematician and for significant development as a teacher and academic leader.